Nuclear Physics Group

The Theoretical Intermediate Energy (Nuclear/Particle) Physics Group was established in 1987 through a Research Improvement in Minority Institutions (RIMI) grant from the National Science Foundation (NSF). The grant period will end in the summer of 1990. Funds are sought for the continuation of this group; however, now the structure will include nuclear experimentalists and will be known as the Nuclear Physics Group of which the theory group is a part. The Nuclear Physics Group will serve as an umbrella for both theory and experimental Intermediate (Medium) Energy physics grant support from all funding sources. This structure will eventually lead to application for a NSF Minority Center of Excellence grant, for example. Funds to support one Research Assistant Professor, one graduate student, one part time Nuclear Physics Group Administrative Assistant (the other part of this salary has been included in an NSF nuclear experimental proposal submitted through Hampton University), and the Principal Investigator are requested.